CSR: SMALL: Design Validation Methods for Reliable and Efficient Floating-Point

Floating-point arithmetic enables computers to smoothly and
efficiently handle widely varying magnitudes such as the diameter of
an atom or that of a star, and fit these measures within computer
words that come in standard widths. Unfortunately,
when calculations are performed on floating numbers, round-off errors
are introduced, often causing real-world disasters, such as errant
missile launches. While employing large computer word widths can
minimize these errors, it also slows down computations, increases
their memory, and energy needs. This project could have a broad impact
by providing much needed debug support for scientific programmers to
develop more reliable floating point programs.

This project develops novel ways to estimate round-off errors, thus
helping programmers arrive at efficient floating-point computer codes.
Special emphasis is placed on handling tricky cases such as squaring
numbers and taking their trigonometric values where prior research had
not sufficiently advanced. By developing powerful and automated tools
for precision estimation, it allows programmers to tune their codes
and pick word widths parsimoniously while not losing accuracy.
The investigators use these tools to develop pedagogical material and best
practices based on hands-on experience that helps inform students who
typically are not taught the pitfalls of floating-point arithmetic.